NSF-REU Leadership Group Travel Awards for REU and LS-AMP Participants, April 6-10, 2008, New Orleans, LA

This award from the Division of Chemistry will partially support the travel of approximately 70 undergraduate students and their faculty advisers to the spring 2008 American Chemical Society National Meeting. The undergraduate students will all be presenting their research at this meeting. The students will be drawn from those who participated in undergraduate research via an NSF Chemistry-supported Research Experiences for Undergraduates (REU) Site or though the Louis Stokes Alliance for Minority Participation.

Attending national meetings is a powerful professional development opportunity for undergraduates. This travel grant program will enable their participation and also enrich their experience with networking events and a strong peer cohort.